Filling the Tank: The Math Modeling/PreCalculus Reform Project

Materials are being developed for an innovative course in mathematical applications as a modern replacement for existing precalculus and related courses. The course is an introduction to mathematical models at the precalculus level and provides students with the skills and knowledge needed for calculus. The models developed in the course are primarily based on discrete mathematical topics such as difference equations, data analysis, probability, and matrix algebra. The course involves computer and/or graphing calculator work to investigate most of the mathematical models. It also involves a variety of live classroom experiments to investigate how well the mathematical models reflect actual processes or to help develop mathematical models based on observed experimental data. The course features a series of student investigations to provide a real- life dimension. It is designed to provide students with the motivation and impetus to continue on in mathematically related fields by exposing them to the wide applicability of mathematics.